Novel Instabilities During the Epitaxy of Single- and Multi-Species Films: A Multiscale Approach

Jabbour
DMS-0605039

Morphological and compositional instabilities are of central
importance in the study of nanocrystal growth. In particular,
controlling the onset and evolution of step bunching, meandering,
and faceting, as well as phase segregation and chemical ordering
during the growth of self-organizing films, paves the way to the
systematic production of nanostructures, e.g., quantum wires and
dots, various two-dimensional nanoscale patterns, etc. The
overall objective of this project is four-fold. Its first part
is concerned with a novel instability during single-species
epitaxy that results from the presence of a nonstandard term, the
jump in the terrace grand canonical potential, in the step
evolution equations. The goal here is to characterize this
instability both in one and two dimensions and to determine if it
can be offset by anisotropic step and terrace kinetics. In the
second part, the focus is on an instability triggered during the
growth of binary compounds where surface chemistry plays a
genuine role. This instability differs from that resulting from
the presence of impurities and is not due to an effective inverse
Ehrlich--Schwoebel barrier for one of the two deposited species.
Hence the need to better understand its underlying mechanisms and
to identify, via phase diagrams, the unstable regimes in
parameter-space. The third part is based on experimental
evidence of step faceting. The goal there is to derive, in a
dissipative setting, a thermodynamically consistent regularized
model that captures the features of this faceting instability
both during growth and sublimation. This is followed by the
numerical investigation of the resulting free-boundary problem
via algorithms recently developed to tackle the problems of
faceting and coarsening at the mesoscale. The last part deals
with intermixing, phase separation, and domain coarsening during
the step-flow growth of multicomponent films, with emphasis on
binary substitutional alloys. In contrast with existing
theories, the microstructure of the vicinal surface is explicitly
accounted for. Moreover, novel boundary conditions at the
evolving steps are carefully derived and used to complement the
Cahn--Hilliard PDE's that govern atomic bulk diffusion. The
proposed model captures the multifaceted physics (surface
kinetics, bulk elasticity and atomic diffusion, phase separation,
etc.) that underlies growth and is multiscale in that the film is
modeled as a layered structure, a view that permits the
resolution of the disparate length scales in the lateral and
epitaxial directions. Finally, its finite-element implementation
yields much needed insight into the interplay between step flow
and alloying/segregation/ordering.

With the advent of nanotechnologies, it has become feasible
to manufacture devices at the nanoscale, from quantum computers
to nano-electro-mechanical systems for biomedical applications.
This has generated a wealth of experimental and theoretical work
which, importantly, is interdisciplinary in nature, involving
materials engineers, condensed-matter physicists, and applied
mathematicians. At the nanoscale, much more so than at the
macroscopic one, theory is an indispensable guide to experiment
by providing a sound basis for experimental observations and,
more ambitiously, by predicting the behavior of material systems
under experimentally uncharted conditions. Of central
importance are instabilities in the film morphology and
composition, as they lead to the self-assembly of, e.g., quantum
wires and dots. Controlling these instabilities is therefore
crucial to the production of various nanostructures. This in
turn requires a mathematical understanding of the physical and
chemical mechanisms underlying the onset and evolution of
instabilities. The investigator develops and analyzes
mathematical models showing the evolution of nanostructures in
films of materials. His effort combines mathematical modeling,
analysis, and computation, and relies on knowledge of the
underlying physics and thermodynamics. The work has the
potential of yielding a better understanding of growth
instabilities. Finally, the project involves the training of a
doctoral student for whom this experience serves as an
introduction to physical applied mathematics, mechanics, and
mathematics of materials.